Conference: The 9th SIAM Central States Section Annual Meeting at University of Missouri-Kansas City, October 5-6, 2024

The 9th Annual Meeting of Society of Industrial and Applied Mathematicians Central States Section (SIAM-CCS) will be held at the University of Missouri-Kansas City during October 5-6, 2024. The SIAM-CSS Annual Meeting provides an opportunity for researchers to facilitate knowledge transfer, networking, and exchange of novel ideas in applied mathematics, numerical analysis, scientific computing, and related fields. Moreover, the conference provides valuable opportunities for career development, particularly for early career mathematicians, postdocs, and graduate students.

The SIAM-CSS annual conference series is an important forum for applied and computational mathematicians from central states (Arkansas, Colorado, Iowa, Kansas, Mississippi, Missouri, Nebraska, and Oklahoma) and beyond. In addition to plenary lectures by distinguished applied mathematicians, the annual meeting hosts mini symposiums in several active areas of applied mathematics and related fields. The scientific focus of the annual meeting will encompass a broad range of topics within applied mathematics and computational science. While the exact themes and emphasis may vary depending on the specific interests of the mini-symposiums organizers and participants, common areas of focus include Numerical Analysis, Partial Differential Equations, Optimization, Scientific Computing, and interdisciplinary applications. The conference website is https://sse.umkc.edu/siam-2024/.